CAREER: Small Foundation Models for Real-Time and Scalable Multi-Robot Coordination

This Faculty Early Career Development Program (CAREER) grant supports research to create new capabilities for coordinating teams of robots that must operate in complex and changing environments. Recent advances in foundation models have the potential to enable new capabilities for autonomous agents to interpret scenes, reason about tasks, and adapt to new situations. However, these models are typically too large or too slow for real-time use on mobile robots. This project addresses this challenge by developing small foundation models to run locally on each robot in a team to support real-time perception, decision making, and control. Current approaches, such as centralized computing, task-specific rules, or rigid software pipelines, may fail in uncertain, cluttered, or dynamic situations. Overcoming these limitations will benefit society in applications such as disaster response, environmental monitoring, precision agriculture, infrastructure inspection, and public safety. The project will also contribute to the national workforce in robotics and artificial intelligence through integrated research and education activities, undergraduate research training, outreach to K–12 students, open-source software and datasets, and dissemination through the robotics research community.

The research will integrate small foundation models across the multi-robot autonomy pipeline. Compact vision-language and language models will be trained to convert robot sensor observations into symbolic scene representations that capture objects, spatial relationships, and motion trends. These representations will support decentralized decision making, allowing robots to assign tasks using local observations and information shared by nearby teammates. The project will develop methods that combine small language models with model predictive control, enabling robots to adapt their motion plans to changing tasks, obstacles, and environmental conditions while maintaining safe and feasible behavior. The resulting algorithms will be evaluated in simulation and on aerial and ground robot platforms through multi-robot coordination experiments, with target tracking as a primary test case.